Inorganic Monolayers Fabricated at an Organic Template: Development, Characterization, and Investigation of Two-Dimensional Magnetism

This research is concerned with developing inorganic monolayer by incorporating arrays of inorganic ions and complexes into monolayer assemblies formed by Langmuir-Blodgett and self-assembly techniques. Organized organic monolayers will be used as templates for forming inorganic layers. Three classes of inorganic layers are explored: layered alkylammonium metal halides, metal halides prepared on organic host, and layered metal phosphonates and phosphates. The new materials will be characterized structurally, and an investigation of their magnetic properties in two dimensions will be conducted. The proposed work has an ultimate potential for developing high-density, reversible magnetic recording media.